Optimization Based Design and Control of Constrained Dynamic Systems

9312922 Mayne The research addresses the problem of obtaining nonlinear controllers for the control of linear and nonlinear systems subject to control and state constraints. There will be two prongs to this research, both employing optimization. The first will be concerned with online optimization and will build on our existing results on receding horizon (model predictive) control in which we have overcome many of the obstacles impeding its use for the control of nonlinear systems; our research will endeavor to remove the remaining restrictions,. to improve the observer- based controller, and to develop an adaptive version of the receding horizon controller. The second prong will be directed to the development of novel, nonlinear controllers, designed using, extensive off-line optimization, for controlling constrained dynamic systems, both linear and nonlinear. This research constitutes a new approach to an important, but difficult area, and it motivated by the results we have obtained in receding horizon control. A beneficial side effect of success in this area would be the provision of initial feasible controls (i.e., controls which satisfy the control and state constraints) for receding horizon control, thus mitigating one of the most difficult problems arising when this type of control is employed to control constrained nonlinear systems. ****